Purchase of a Gas Chromatograph/Mass Spectrometer

The Chemistry Department at Kearney State College will purchase a computer-controlled gas chromatograph/mass spectrometer to update and enhance the chemistry education of its undergraduate students. The instrument will be used for demonstrations in two courses for non- science majors, and will be used by students in several courses for majors: organic chemistry, organic qualitative analysis, instrumental methods, and student apprenticeship. Projects include investigations of agricultural pesticide residues, industrial wastes, and other environmental chemical hazards. Acquisition of this instrument will also allow faculty to implement their plan to develop and publish mass spectrometry experiments for undergraduate laboratory courses.